(CIMDATT) Curriculum & Instructional Materials Development for Advanced Transportation Technologies

The transportation industry faces a growing skills gap in its existing workforce and lacks a qualified workforce for emerging occupational positions. The primary objective of this project is to increase the supply of new and existing workers who possess the requisite core academic knowledge and technical skills needed to compete in the area of advanced transportation technologies. The four major activities which are producing programs and products are: (1) Curriculum & Instructional Materials Development; (2) Faculty and Teacher Professional Development; (3) Recruitment and Retention of Minorities and other Nontraditional and Under-served Populations; and (4) Internship Experiences for Students and Instructors. The expected outcome is a Tech Prep Associate Degree Program for Grades 11-14 and for adults re-entering the workforce. Notable collaborations include the California Advanced Transportation Technology Initiative, College of Engineering Center for Environmental Research and Technology at the University of California Riverside, West Virginia University's National Alternative Fuels Training Center, Schatz Energy Research Center at Humboldt State University, Georgetown University Fuel Cell Program, SunLineTransit Agency, National Automotive Center, John Deere, DOE/Clean Cities, Service Technicians Society (STS), and the Coachella Valley Economic Partnership.